EAGER: Towards the Web of Biodiversity Knowledge: Understanding Data Connectedness to Improve Identifier Practices

Biodiversity research investigates the variety and variability of life on Earth. This field of science crosses many research disciplines such as genetics, studies of organisms, plants and animals, habitats and ecosystems, and their interactions. A long-standing challenge for biodiversity researchers is to find, access, "mine", and integrate complex and diverse information from those disciplines. New approaches have now become possible with the increasing availability of "big data" techniques and infrastructure. This project will explore and employ such advanced techniques for retrieval and mining of a wide range of available open biodiversity data sources, with the aim of generating an improved holistic picture or "knowledge graph" of Earth's biodiversity. The project will also identify the data practices and discovered relationships that were needed to accomplish this graph-building task, with the aim of informing the development of future data systems and training on these techniques.

Many attempts have been made to link together biodiversity knowledge using linked identifiers coupled with data standards and taxonomies, but satisfactory results with such "exact matching" approaches have been elusive. This project aims to develop new methods of relating records across datasets that do not rely on matching identifiers but instead employ inferred rather than explicit relationships between data records. This is an experimental approach that has not yet been attempted at scale. Linkages between publicly available biodiversity, genetic, literature, and other data will be explored; and software infrastructure will be developed to combine and link multiple biodiversity datasets. Another goal is to quantify the relationship between identifier practices and the ability to construct links between available biodiversity, genetic, literature, and other data. This project will draw on and complement other large ongoing collaborative efforts that contribute to broad integration of biodiversity knowledge, data science, and infrastructure such as the Encyclopedia of Life (EOL) and the NSF-supported iDigBio project. The ultimate aim is to understand which data practices provide the most value to the biodiversity community and thereby inform policy, standards, and training on identifiers. This, in turn, can enable the exploration of new fundamental and cross-disciplinary research questions, and potentially improve practices of a wide range of US and international data aggregators and data producers.

This project is supported by the National Science Foundation's Public Access Initiative which is managed by the NSF Office of Advanced Cyberinfrastructure on behalf of the Foundation.